Fluctuations in Fluids Far From Equilibrium

This research project will be concerned with experimental studies of fluctuations in fluid systems driven out of equilibrium. They will do polarized and depolarized Rayleigh-scattering experiments in a variety of systems subjected to a stationary temperature gradient. The experiments should yield quantitative information about the long-range correlations present in dissipative systems.